ITR/NGS: A Framework for Discovery, Exploration and Analysis of Evolutionary Simulation Data (DEAS)

In science the challenge is always finding a signal in the noise. Examples include hurricane forecasting and monitoring both intelligence and seismic activity.
Our proposal addresses these issues through a broad framework we call generalized feature mining. The framework has two major components: feature mining, and shape-based data mining and analysis. At its core, feature mining detects features for a specific application domain. Each instance involves a specific extended shape description tailored to it. For evolutionary simulations, feature mining also tracks features across multiple temporal scales. Shape-based data mining and analysis learn from the process. The aim is to correlate information from the extended shape descriptors with transient detection to find or refine spatio-temporal rules for the evolution of features. Environmental influences, such as walls, must be built into the rules so they are predictive.
To close the loop, the detected features can be displayed as they are found or refined. The evolutionary rules predicted by our framework can lead to new science { not only understanding the underlying phenomena but also leading to computationally simpler models that encapsulate the essentials.